Transport Phenomena Associated with Liquid Flow Through Microtubes

Abstract
CTS-0085307
R. Maynes, Brigham Young University

This one year grant will permit the PI's to make initial measurements in microchannel flows and to provide a more refined statement of their plans to address the unexpected pressure drop/flow rate results obtained in prior investigations. Microchannel flows present complexities that are not encountered in their macro scale counterparts and the PI's are well positioned to make contributions in this developing field.